Exploring the Blue Planet: The Scripps Hall of Oceanography

In spring of 1992, Scripps Institution of Oceanography will open a new Aquarium-Museum. The enlarges facility will include a 3700 sq. ft. gallery, the Scripps Hall of Oceanography. Funding is requested for a new exhibit in this gallery, Exploring the Blue Planet, which will offer visitors an overview of the ocean sciences -- to our knowledge, the only major exhibit on oceanography in the United States. The exhibit first introduces visitors to our water planet, followed by a walk through the history of oceanographic research. Visitors are then invited to explore the ocean world as if they were oceanographers themselves, making discoveries as they follow the theme of "water" through the hall, adding components one-by-one to build a global system: first water alone (water chemistry and movements), then adding air (climate and weather), next adding land (seafloor spreading and plate tectonics), and finally adding life (adaptations of organisms to the marine environment). Through interactive exhibits on scientific concepts, coupled with exhibits on related Scripps research projects, visitors gain an appreciation for the process of science and its application to their everyday lives. The conclusion of Exploring the Blue Planet brings together the four realms of water, air, land and life to emphasize the nature of Earth as an interrelated global system. Visitors learn that oceanography, an interdisciplinary science that is global in scale and often international in practice, lends itself to a balanced and comprehensive investigation of global change and our future on earth.